Mathematical Sciences Computing Research Environments

The department of mathematical sciences at the University of Delaware will purchase an IBM PowerStation 550 and four Sun SPARCstation IPX workstations which will be dedicated to the support of research in mathematical sciences. The equipment will be used for several research projects, including in particular: 1. The numerical solution of fluid-structure interaction problems in three dimensions, 2. A study of finite element methods for Maxwell's equations, 3. The computation of viscoelastic and transonic flows, 4. The numerical modeling of wave phenomena in composites, 5. A study of 3D hp and p version finite elements on multilevel tetrahedral meshes.